Dissertation Research: Late Pliocene Archaeology at the GonaRiver, Ethiopia

Under the direction of Dr. Jack Harris, Mr Sileshi Semaw will collect data for his doctoral dissertation. He will conduct archaeological research in the Awash Valley region of Ethiopia. Prior work by Mr. Semaw as well as others has revealed the presence of archaeological materials in the Gona River drainage. Based on geological analysis the Gona sites date to approximately 2.5 million years ago and this makes them among the oldest known. Mr. Semaw will now follow up on this earlier work. He will conduct a survey of the Gona region to locate additional sites. He will undertake a large scale excavation to study the nature and character of in situ archaeological occurrences. Data thus gathered from surface and excavated settings will provide evidence on the ecology and activities of the hominids who manufactured the artifacts. Finally studies will be initiated to determine the presence or absence of culturally modified bones. While it is known that early humans began to make recognizable stone tools ca. 2.5 million years ago, little else is known about their behavior. This, in large part, results from the fact that very few sites dating from this time period are known. Because the Gona site includes both in situ lithics as well as faunal remains, it is extremely important. The excavations and analyses that Mr. Semaw will conduct may answer questions on the dietary and cultural adaptations of these hominids. It is not known for example whether hunting or meat eating was practiced. This research is important for several reasons. It will provide data of interest to many anthropologists. It will also assist in the training of an extremely promising young scientist.